Advanced Internet Satellite Extension Project

The "Internet Satellite Project" will develop and deploy advanced Internet services and technologies over satellite infrastructure for purposes of enhancing research, instruction and learning in a diverse set of institutions of higher education.

A combined effort by the American Distance Education Consortium (ADEC) and Tachyon, Inc. will extend the benefits of Internet2 to a broader set of institutions and provide experience with advanced satellite-based Internet technology. The project will be managed by ADEC and led by a core set of ADEC member institutions engaged in the Internet2 project. ADEC bridges the Internet2 community to an extended set of diverse institutions of higher education. Tachyon provides technology capable of connecting the Internet2 community to institutions unable to access the Internet2 backbone network because of geographical disadvantage.

This project focuses on bringing advanced networking applications to geographically remote campuses. These capabilities will be applied to the areas of research, instruction and learning. By engaging previously unreachable campuses or parts of campuses and remote learning centers, this will enable a broader community of scholars to engage in research; greater access by scholars both at Internet1 institutions as well as at the previously unreachable institutions to remote instruments and data sources; the increased availability of instructional and learning resources shared among a more diverse student population; and access by the research university community to cultural and human resources from otherwise inaccessible institutions and extension offices.